A Computational Approach to Designs and Correlative Descriptions

Over the past years, research in architecture has demonstrated that some classes of designs can be generated according to rules. These designs may be viewed in terms of a number of interrelated, multi dimensional descriptions, where descriptive rules determine specific aspects and features of the object. For example, these descriptive rules might generate geometrical aspects from the plan, elevation, and section of a building or might generate functional aspects pertaining to the use or purpose of it. As the descriptive rules are exercised, the design is built up along many interrelated dimensions. The principal investigator proposes to study how the rules for generating designs can be extended beyond the field of architecture. The formal character of these rules lend themselves to a domain independent view of design. The research will contribute to our understanding of formal design specifications and may enable specialists to communicate across disciplinary specifications and may enable specialists to communicate across disciplinary boundaries to produce designs that are coherent from multiple perspectives. The principal investigator is a well.known researcher in the field of architectural design and a forerunner in the field of shape grammars.